Front-End Evaluation: A Guidebook

9624391 Pollock Under the Small Grants for Exploratory Research Guidelines, the Association of Science-Technology Centers under the direction of Wendy Pollock and in cooperation with Lynn Dierking of Science Learning, Inc. will examine the literature, current methodology, and value of front-end studies in planning informal learning projects. The project "Front-End Studies: A Guidebook for Science Museums" will result in a publication available to a broad audience of practitioners developing informal learning programs. The objective of this work is to provide a resource that will encourage more extensive and fruitful use of front-end studies. Dissemination of results and abstracts of front-end study reports will also be posted on the ASTC Home Page. Research in science learning makes it clear that it is important for those who provide learning opportunities to begin with an understanding of what learners know, what they don't know, what misconceptions they may have, and what they are interested in learning. The more that the program design team understands about the learner, the stronger the learning activity. Unfortunately, not all informal educators realize the value of front-end studies and incorporate them in their program development protocols. The value of this research is to provide methodological guidance and research resources, along with clearly developed arguments, for practitioners interest in improving the conceptualization of the science learning activities.